Receiver Reference Models: A prototype for automated production of EarthScope/USArray data products

We are creating an automated processing framework for EarthScope/USArray
seismological data. This system aids in the integration of USArray
results into products of interest to a wide range of seismologists,
geoscientists, K-16 educators, and students at all levels. The initial
product estimates crustal thickness beneath USArray stations.